Thin Na-B"-Alumina Electrolytes by Electrochemical Vapor Deposition (EVD) for Sodium-Sulfur Batteries

Sodium-beta (Na-beta)-alumina is the solid electrolyte membrane used in sodium-sulfur batteries with applications in load leveling, electric automobiles, and satellite communications. A novel method for the fabrication of thin (20 to 50 micrometers) Na-beta-alumina solid electrolytes will be undertaken. This method, known as electrochemical vapor deposition (EVD), has been used successfully to deposit zirconia, perovskites, and ceria for applications in solid oxide fuel cells. The method consists of reacting gaseous species to form a thin membrane of Na-beta-alumina over a porous support, further growth of which occurs by EVD. An EVD reactor will be built. Na-beta-alumina membranes will be deposited using two processes; a one step and a two step process. The membranes will be characterized with regards to microstructure, crystal structure and conductivity.